Career Advancement: Organic Light Emitting Diodes

9520561 Dorsinville The PI plans to fabricate organic light emitting diodes (LEDs) and study their characteristics. He proposes to take advantage of the high luminescent quantum efficiency and extremely narrow emission bands of organo-metallic complexes of lanthanide ions (Ln3+) to fabricate and characterize efficient and bright electroluminescent devices. The PI also plans to investigate polymer emitters with a well defined microstructure to study the role of structural changes on the efficiency of photoluminescence and electroluminescence. He will carry out FTIR, EPR, Raman, steady state and time resolved photoluminescence and photoconductivity measurements to gain a good understanding of the nature of the different physical processes in emitter materials. Specific issues to be addressed in the framework of this project is the synthesis of new polymer emitters and the improvement of long term stability of organic electroluminescent devices. ***